Process Design in Metal Forming

This proposal is to further develop the novel backward tracing procedure for designing preforms utilized as starting stock in the metal forming process. The procedure uses capability of forward simulation and backward tracing of a forming process by the finite element method. The investigator's current NSF grant has laid the foundation for this work and has demonstrated that it is now possible to investigate preform design and its optimization in the area of complex thermo-viscoplastic deformation. Investigations are proposed on the development of criteria and methodology, development of the finite element method for three dimensional thermo- viscoplastic deformation and implementation of the backward tracing procedure into the finite element scheme. Specific applications of the method which will be investigated are preform design in flashless axisymmetric forging and in three dimensional plate rolling. The approach is novel. The method should reduce, or eliminate in some cases, the need of the designer's experience in the designing of preforms. The proposed approach should open a new avenue for design in future metal forming technology.